Charge Storage and Persistent Photoconductivity in II-VI Semiconductor Alloys

The storage and relaxation processes of photoexcited charge carriers and persistent photoconductivity (PPC) in II-VI semiconductor alloys is to be investigated. Detailed studies will be made of PPC related critical phenomena, including phase transitions, conductivity noise, and charge carrier decay behavior under different conditions. It will explore the origin of PPC in II-VI semiconductors and provide quantitative characterization of PPC effects. Studies of transport properties, including Coulomb gap, hopping conduction, and structure of electron networks in the PPC mode are proposed. Potential applications of PPC in II-VI semiconductor alloys are discussed.